Mathematical Sciences: Higher Algebraic K-Theory

This project is concerned with research in algebraic K-theory. The principal investigator will verify the special lambda-ring identities for the general lambda operations which have recently been defined. Work will also be done on equations among modular forms of weight one and generalizations to K-theory. This project is in the general area of algebraic K-theory. K-theory concerns the evolution of ideas of vector space, basis, linear mapping and general linear group to a context where the scalars are from a commutative or noncommutative ring. In this context, K-theory can be utilized in algebraic geometry and other mathematical models involving coefficients from rings.